Collaborative Proposal: SGER: Conforming Polygonal Finite Elements

In this Small Grant Exploratory Research proposal, a new and
novel direction in finite element methodology is pursued.
Polygonal finite elements provide greater flexibility in mesh
generation and are better-suited for applications in solid
mechanics which involve a significant change in the topology of
the material domain. In this proposal,
recent advances in meshfree approximations, computational
geometry, and computer graphics will be used to construct
conforming trial and test approximations on
polygonal finite elements. Computational algorithms (optimization
scheme) for mesh generation with polygonal elements will be
developed, and numerical studies on the accuracy and convergence
of the finite element technique will be conducted for
elliptic boundary-value problems. The results of this study
can potentially open-up new pathways in finite element research, lead to the
wider usage of polygonal finite element methods in solid mechanics
and computational materials science, and also
provide impetus for the construction of cubature rules on polytopes.